FDSS Track 2: Building Solar-Terrestrial Physics Capacity at Bates College

This award supports the creating of a new tenure track faculty line that integrates solar physics and space weather research with the development of undergraduate and graduate programs to train the next generation of leaders in these fields. Solar eruptions can have tremendous impacts on communications and power generation infrastructure. Thus, there is need to better understand the Sun’s activity and train students in solar physics and space weather.

The new faculty member will build a research group in solar magnetism and develop new introductory and advanced level undergraduate courses related to solar physics. They will also introduce solar physics topics into the University’s outreach efforts, organize a lecture series with external speakers, and host a geospace symposium for students and researchers from other institutions. The new faculty member will have access to campus resources for pedagogical training and mentorship on grant writing and award administration to ensure their success to tenure and beyond.